OPTIMO: Occidental Partnership to Increase Mathematics Opportunity

9452697 Goldberg Occidental College seeks to initiate a four week summer residential Young Scholars project in mathematics for 32 students in the northeast Los Angeles area entering grades eight through ten. The recruitment area is the attendance regions of the eleven public high schools nearest the College. Most students are minority group members. Students will actively participate in the process of mathematical development: seeking patterns, formulating conjectures, reasoning, writing and speaking. Problems will be chosen from areas of discrete mathematics. Students will use personal programmable graphing calculators. Computer and science laboratory experiences will complement mathematics workshops. Academic year follow-up activities will include class, lectures, career and college admission workshops, field trips, and Science Fair participation. Local scientists, engineers and other professionals will visit the students. ***